Theoretical Astrophysics and Gravitational Physics

The University of Florida group will carry out research in theoretical gravitational physics which will involve the application of analytic and numerical techniques to the study of black holes, compact stars and clusters, cosmological problems, and quantum aspects of gravity. Binary systems consisting of two black holes might form fairly often in galactic nuclei and become important sources of gravitational radiation. The evolution and emission properties of such binaries will be studied with new techniques. The study of neutron stars will continue. One activity will imploy further the Butterworth-Ipser numerical code to decipher observable structural properties of rapidly rotating relativistic neutron stars. Another will employ new "Eulerian" techniques to study nonaxisymmetric pulsations and stability, with emphasis on the maximum rotation rates expected to be observed. Star clusters, which possibly form in galactic nuclei and collapse to massive black holes, will be studied, with the focus on their stability properties. Estimates will be made of the distribution of dark matter in galaxies to assess the viability of local experimental detection of dark matter. Tools such as path integrals and spinoral techniques will be used to study quantum-gravity problems such as the early Universe and late stages of black-hole evaporation.